Planning Grant: The Genome Radio Project

9552978 Scott ABSTRACT: This funding is for a planning phase of the Genome Radio Project, a multifaceted project that will produce 17 1/2 hours of radio programming, plus a variety of printed and electronic ancillary materials, exploring the science and social implications of human genetic research. The planning grant will enable the project team to develop further five key areas: o To work with advisors to define their process of editorial oversight and their involvement in the program ppoduction process; o To produce a half-hour documentary pilot program; o To use the pilot program to solidify distribution agreement with networks and major market stations; o To develop ancillary materials to accompany the pilot program and to determine mechanisms for the distribution of these materials; and o To conduct focus group evaluation of the pilot program and to define specific evaluation plans for the broader series.